International Symposium on Mathematical Programming 2009; Chicago, IL; August 2009

This project supports travel by graduate students, postdoctoral
associates, and young faculty members from US institutions to the
International Symposium in Mathematical Programming (ISMP), to be held
on August 23-28, 2009, in Chicago, Illinois. This year's ISMP is the
twentieth conference in a series that began in 1949 and is held about
every three years. ISMP is the major conference for the optimization /
mathematical programming community and is a must-attend event for
researchers in the area worldwide. The attendance has grown from about
40 participants in 1949 to over 1400 at more recent gatherings. About
every second or third ISMP is held in the US. Further information on
ISMP 2009 can be found at http://www.ismp2009.org. ISMP provides the
main forum for the exchange of ideas in optimization, and in
particular for cross-fertilization between the discrete, continuous,
and stochastic aspects of the discipline. The major professional
prizes in optimization, which are decided by juries assembled by MPS
and co-sponsoring societies AMS and SIAM, are awarded during the
opening ceremony of ISMP. Particularly notable is the Tucker Prize,
which is awarded to the best student thesis written during the three
years preceding ISMP. It has been a long-standing tradition to hold a
technical session at ISMP during which the three student finalists
present their work; this session is always a highlight of the meeting.

The project provides reimbursement of travel costs for at least 25
graduate students and young researchers from US institutions to attend
ISMP 2009, to a level of up to $800 per participant. ISMP is the
premier conference in optimization, held triennially. Optimization is
a field of mathematical and computational research that concerns
itself with finding the best way to operate a system subject to
restrictions on the choices that can be made. It has applications in a
great many areas of science, engineering, and commerce, which are
illustrated by the following three examples. First, optimization is a
vital tool in designing radiation treatment plans for cancer patients,
where the goal is to irradiate and thus destroy tumors while sparing
healthy tissue. Second, optimization is used in designing mechanical
parts for vehicles and machines that have minimum weight and cost
while meeting certain strength and robustness requirements. Third,
optimization is used in budget planning for businesses, to allocate
resources in a way that maximizes expected profit in an uncertain
economic environment. Support of attendance by young US researchers at
ISMP will be of great benefit to their careers and research
programs. It will eventually have important positive benefits for US
industry, science, and technology. Applications for support will be
solicited and reviewed by a committee of optimization
researchers. Awardees will be chosen to ensure breadth and diversity
of individuals and institutions represented, and to ensure
participation of women, minorities, and persons with disabilities in
ISMP 2009.